Relationship between Global Sea Level Change and ContinentalShelf Development: An Investigation using the Stratigraphy of the Baltimore Canyon Trough

Fluctuations in sea level are an important control on the depositional sequences at passive margins. Current models of sea level change. Oversimplify the mechanics of continental margin subsidence and flexural loading but consider adequately eustatic changes. It is proposed to combine these two parameters into a single model which can rigorously simulate both aspects of continental margin stratigraphic development. In conjunction with the model development the investigators plan a detailed study of the stratigraphy of the Baltimore Canyon Trough. It is the goal of this study to contribute towards the resolution of the controversy over the shape and amplitude of global sea level changes by quantitative modeling of the stratigraphy in the Baltimore Canyon Trough. As part of this process the investigators hope to also better determine the evolution of the shape of this continental margins.